In-Cylinder Imaging of the Combustion of Alternative IC Engine Fuels in Production Engines

ABSTRACT - BOEHMAN

An AVL Engine Videoscope is acquired and implemented on two research engines being used for study of atomization, ignition, and combustion behavior of alternative diesel fuels. This apparatus enables observation of the spray behavior of fuel blends, the impact of oxygenated fuels on the ignition and combustion behavior of diesel fuel, and the ignition of natural gas by a pilot injection of oxygenated fuel. The emphasis of the studies is on emissions characterization and combustion analysis by means of in-cylinder sensing.